To Think, to Write, to Publish: Forging a Working Bond between Next Generation Science Communicators and the Next Generation of Science and Technology Policy Leaders

Arizona State University is conducting a May 2010 two-day workshop that will bring together "Next Generation" (NextGen) science communicators (writers, journalists, bloggers, documentary filmmakers, museum professionals); NextGen scholars/researchers in science and technology policy; and publication editors. The goals are: to help improve the communications skills of these professionals, to encourage collaborations of communicators and scholars, and, ultimately, to help the public gain a better understanding of the policy dimensions of STEM by encouraging more effective communications about STEM and policy issues that affect their lives.

The workshop provides direct experience in a writing genre called "narrative nonfiction" or "creative nonfiction," a domain in which Gutkind has been a leader. The co-PI, Guston, is a scholar in science and technology policy and an active partner of the NSF-funded Nanoscale Informal Science Education Network. In addition, the Spring 2011 issue of Issues in Science and Technology will include works by the collaborating communicators/scholars. This workshop precedes and informs a larger conference on science policy, "The Rightful Place of Science?," funded by others, including NSF's Science, Technology, and Society program (http://www.cspo.org/conference2010/).